Traditional Jambi Malay

A research team consisting of Dr. Peter Cole, Dr. Gabriella Hermon,
and Dr. Uri Tadmor, assisted by Ms. Yanti Jotika, a graduate student
in linguistics, will conduct linguistic fieldwork on Traditional
Jambi Malay, an endangered Malay variety spoken in Jambi Province in
southeast Sumatra, Indonesia. Malay-Indonesian is a major world language, perhaps the fourth most widely spoken language in the world. Yet there are almost no thorough scientific descriptions of vernacular Malayic languages
and Malay-Indonesian dialects. Grammars of Malay-Indonesian as well
as most theoretical works on the language are almost entirely based
on the quasi-artificial standard language. Most native speakers of Malay live in Sumatra, many more than in Malaysia, yet there is not even one thorough grammatical description of a Sumatran Malay dialect. Traditional Jambi Malay is an ideal choice because Jambi is widely considered to be original locus of Melayu (the Malay-Indonesian term for 'Malay'), and is thus the key to understanding the complex diasystem of hundreds of Malay dialects. The linguistic field work will be carried out in two villages, Mudung Laut and Tanjung Raden, where
Traditional Jambi Malay still exhibits many features lost in the
koineized urban variety spoken in Jambi City. The results of the project will include a general description of the language, documentation of the language in the form of a computerized database of texts linked to digital recordings in a variety of genres, and theoretically oriented studies based on the data. An automatically generated Jambi Malay-English-Indonesian glossary will also be produced, which will serve as the basis for a Jambi Malay dictionary in the second stage of the project. Finally, the investigators will prepare two locally published volumes, one of folk stories and the other autobiographical sketches.

Broader impacts of the project include first and foremost the
documentation and description of an endangered language (an important
priority for linguistics around the world), as well as the training
of a speaker of that language as a field linguist. The project will
also create cultural materials for use by the speakers of the
language. The project involves cooperation between U.S. scientists
and scientific institutions abroad: The director of the Jakarta
Field Station of the Max Planck Institute for Evolutionary
Anthropology is a co-PI on the project. The project also plays a
role in the training of American graduate students with regard to the
importance of work on endangered languages and contributing to the
preservation of the linguistic and cultural heritage of a
marginalized community. Equally important is the role of the project
in training international graduate students.